NSF Ocean Observatories Initiative Facility Board (OOIFB) Administrative Support Office

This award provides funding for the NSF Ocean Observatories Initiative Facilities Board (OOIFB) Administrative Support Office (ASO). The ASO provides management structure and resources for meeting organization and scheduling, outreach and communications, and community and board member engagement in workforce development activities. It assists in the organization and running of community workshops aimed at stimulating the formation of new science user groups, multidisciplinary collaborations, summer school workshops aiming at workforce development in science, technology, engineering and mathematics (STEM), and town hall sessions at major oceanographic conferences. These activities increase engagement with a broad array of science, engineering, and educational audiences from a wide spectrum of institutions and organizations.

This OOIFB provides independent input on the management and operations of the Ocean Observatories Initiative (OOI), an NSF supported, community-inspired, and community-serving research facility enabling ocean science research. The facility consists of an integrated network of instrumentation arrays, distributed in various coastal and global ocean locations that collect, archive, and distribute quality ocean, marine geophysical, and atmospheric data to the ocean and Earth science communities. The OOIFB expands scientific and public awareness of OOI and ensures that the oceanographic community is kept informed of relevant developments. In addition, the OOIFB provides a communication conduit between the user community and NSF, which enables effective and informed NSF oversight of the facility. With support from this award, the OOIFB ASO will assist the OOIFB in fulfilling its mission and engage researchers and educators so that science discoveries and OOI data and resources are utilized by the broader oceanographic community.